CRA Distributed Mentor Project: Mentoring Undergraduate Females in Computer Science and Computer Engineering

In an effort to increase the number of women entering graduate school in CISE disciplines, the Computing Research Association (CRA) is proposing a distributed mentoring project where 20- 30 female undergraduate students will be matched with a number of female professors in CISE research areas each year, to participate in summer of research at the mentor's institution. The students will most likely be computer science or computer engineering majors although this is not required. The CRA is an association of U.S. and Canadian academic departments of Computer Science and Computer Engineering and Industrial Laboratories engaging in basic computing research. The mission of CRA is to represent and inform the computing research community and to support and promote its interests. Dr. Weingarten is the Executive Director of CRA. Dr. O'Rourke, the academic leader of this project, is the Department Chair of Computer Science at Smith College, Massachusetts.